Dealing with Assessment: Science Education

9361882 Dockterman Falling test scores, a struggling economy, an ethnically diverse population, and changes in the global marketplace have brought the American educational system under increasing scrutiny and attack. The need for new skills in the Information Age has prompted reform efforts in all areas of the curriculum, but with a special focus on science. In concert with curricular change, reformers have also targeted assessment. They have recognized that what is evaluated often drives what is taught. Thus, there is a very pressing need in K-12 education today for practical programs and materials to help all schools plan and implement alternative assessment approaches. In response to this need, Tom Snyder Productions, working with the Coalition of Essential Schools, proposes to prototype and evaluate a technology-based package designed to engage teachers and administrators in informed discussion and practical ongoing action in the area of alternative assessment in science instruction. The centerpiece of this package will be a CD-ROM based simulation, Dealing with Assessment: Science Education, that simultaneously introduces the issues and provides a foundation of skills for independent action by teachers and administrators. ***